Research Experience for Undergraduates: Modeling, Analysis and Control of Engineering Systems

Boston University's Manufacturing Engineering Department is continuing a Research Experiences for Undergraduates program which provides support for undergraduates to participate in research in the area of modeling, analysis, and control of engineering systems. The program emphasizes flexible manufacturing systems, robotics, and process control. The Manufacturing Engineering Department believes that research experiences provide excellent education opportunities for undergraduates. By getting involved in research activities, undergraduates can be better interactive with graduate students and faculty. They can also be exposed to real problems and be more motivated.